Characterization of Negative Regulators of NPR1-Mediated Systemic Acquired Resistance

The long-term goal of this research is to use Arabidopsis thaliana as a
model system to determine the signaling events leading to systemic acquired
resistance (SAR). SAR is a secondary pathogen resistance which can be
induced after a local infection. SAR is broad-spectrum and long-lasting.
Through genetic screens, NPR1 has been identified as a key positive
regulator of SAR; mutants of the NPR1 gene are nonresponsive to SAR
induction. NPR1 encodes a novel protein with functionally important
protein-protein interacting domains, the BTB domain and the ankyrin-repeat
domain. Recent data show that nuclear localization of NPR1 is essential
for its function. In the nucleus, NPR1 may affect the activities of the
TGA subclass of bZIP transcription factors as well as the WRKY
transcription factors, which have been implicated as transcriptional
activators and repressors of pathogenesis-related (PR) genes, respectively.
A genetic screen for suppressors of npr1 has led to identification of sni1,
a mutation that restores systemic induction of PR genes in npr1. The
wild-type SNI1 is believed to be a negative regulator of SAR whose
inactivation requires the function of NPR1. It is hypothesized that NPR1
induces SAR by activating the TGA transcription activators and inactivating
WRKY transcription repressors, and relieving the negative control of SNI1.
In this project, molecular genetic and biochemical experiments are designed
to (1) determine the functional significance of the interaction between
NPR1 and WRKY transcription factors in SAR; (2) determine the mechanism by
which SNI1 functions as a negative regulator of SAR; and (3) identify
components in the NPR1-complex. Because NPR1, SNI1, and WRKY transcription
factors are either novel or plant-specific proteins, characterization of
these components may unveil new mechanisms of signal transduction.
Understanding molecular mechanisms of disease resistance in plants will
lead to the development of technology in enhancing plants' innate defense
to control infection. Such technology has the potential to reduce the use
of hazardous pesticides without using non-plant genes. Therefore, the
study of plant-microbe interactions is of interest to advancement of basic
science as well as to protection of the environment and improvement of
human life.